Participation Request for "The Second International Conference on Computational Structures Technology 1994"

9418908 Demers, Cornelia E. This award is for travel to the 2nd International Conference on Computational Structures Technology, 1994 at Athens, Greece, August 28 to September 2, 1994. The conference themes are: structural modelling, simulation, knowledge based systems, and 36 other related topics. ***